Computer Science, Engineering, and Mathematics Scholarship Program (CSEMS)

This project provides 25 scholarships to talented low-income students in computer science, computer networking, computer network technology, and computer information technology. The project includes guest lectures and other interaction with industry representatives. In addition to the college's student support system, scholarship recipients have access to project supported peer tutoring.